On the Numerical Solution of Differential and Riccati Equations, and Related Matters

This research is concerned with a number of theoretical and computational issues involved with the solution of differential and algebraic Riccati equations. Differential and algebraic Riccati equations appear in the solution of two-point boundary value problems, and in eigenvalue and generalized eigenvalue problems.